SHF: Small: Minimal Multithreading - Exploiting Redundancy in Parallel Systems

Due to technology and industry trends, parallelism and energy
efficiency have emerged as critical considerations in future computing
systems. The investigators observe that many convenient models for
writing parallel programs can lead to significant redundancy in
computation and data. This redundancy can be used to improve
performance and reduce energy consumption.

The investigators observe that many parallel software models
(e.g. data parallelism, Single-Program Multiple Data (SPMD),
multi-programming, and high-throughput computing) consist of multiple
threads of computation with very similar instructions streams and
working sets of data. The trick, however, is to design efficient
mechanisms that both exploit this similarity and effectively support
the differences. This project will follow two research thrusts to
eliminate redundancy across five application domains. First, the
research will explore multi-threaded processor core designs that
eliminate redundant instruction fetch and/or execution. Second, the
research will explore content-aware caching techniques that reduce
redundant storage of identical data across parallel threads and
processes.